Theory of Motivic Sheaves and Beyond

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

In this project, the PI intends to use the theory of motives to create new
tools for the study of problems in algebraic geometry and number theory.
The PI will develop a theory of motivic sheaves. His approach is based on
the idea that the category of motivic sheaves over a scheme can obtained
by gluing the DG categories of Voevodsky's motives over points. The PI
plans to study the functor of motivic vanishing cycles and prove that this
functor commutes with the Hodge realization and l-adic realization.
The PI will apply these results to the study of degenerations of
algebraic varieties and, more specifically, to the integrality conjectures in
mirror symmetry. Additionally, the PI plans to use the theory of motivic
sheaves to embed the category of log schemes into the category of motives
providing a bridge between the Fujiwara-Kato-Nakayama Hodge and
etale realizations of log schemes.

The theory of motives is a central part of algebraic geometry.
Algebraic geometry deals with systems of algebraic equations. The theory
of motives uses ideas from algebraic topology (study of shapes by means of algebra)to understand structural properties of the solution set
even when one cannot actually solve the equation explicitly. This theory
provides a language to relate seemingly unrelated objects such as the
space of complex solutions to a given system of algebraic equations with
integral coefficient and the set of its integral solutions.
The PI plans to borrow some ideas from singularity theory (a part of algebraic topology, that studies shapes by degenerating them into simpler ones), adapt these ideas to the new setting, using the language of motives, and then apply it to solve problems in algebraic geometry and number theory that can not be
solved by other methods.